III: Small: Avoiding Contention on Multicore Machines

To take full advantage of the parallelism offered by a multicore
machine, one must write parallel code. Writing parallel code is
difficult. Even when one writes correct code, there are numerous
performance pitfalls. For example, an unrecognized data hotspot could
mean that all threads effectively serialize their access to the
hotspot, and throughput is dramatically reduced.

This project aims to provide a generic framework for performing
certain kinds of concurrent operations in parallel. Infrastructure is
provided to perform those operations in a scalable way over the
available threads in a multicore machine, automatically responding to
hotspots and other performance hazards. The goal is not to squeeze
the last drop of performance out of a particular platform. Rather,
with the planned system a programmer can, without detailed knowledge
of concurrent and parallel programming, develop code that efficiently
utilizes a multicore machine.

The project involves the development of algorithms and data structures
designed for the efficient parallel execution of generic code
fragments. The primary focus is on data intensive operations as would
typically be found in an in-memory database engine. Critical research
questions include how to design generic multi-threaded operators that
can be applied to a range of computations, how to avoid cache
thrashing, and how to implement the framework in a way that works on a
variety of hardware platforms. Performance improvements in throughput
of an order of magnitude are expected relative to naive solutions that
suffer from contention. The project aims to achieve performance close
to that of hand-tailored expert-written parallel code, with far less
coding effort.

This project has immediate applications in both commercial and
public-domain database systems where performance improvements would
enhance the experience of database system users, and reduce hardware
and energy requirements for a given level of performance.

Programmability improvements would allow programmers without expertise
in parallel programming to effectively use multicore machines. The
project also provides the focus for an advanced-level course on
database system implementation for multicore machines. The software
infrastructure will be made available for research use by others.